Mathematical Sciences: Indecomposable Continua in DynamicalSystems

Evidence to date suggests that exotic invariant continua play a determining role in many dynamical systems. Kennedy will continue investigating how these continua arise in dynamical systems and what role they play. Part of this research involves teaming up with various researchers from dynamics in the hopes that the combined expertise from dynamics and continuum topology will have a better chance to solve the problems involved.